Collaborative Research: A Computational Framework for Non-asymptotic Homogenization with Applications to Metamaterials

The project is aimed at developing a non-asymptotic homogenization
theory of Maxwell's equations in artificial periodic composites
(metamaterials). Currently, there is a consensus that sufficiently
large lattice cell sizes are necessary for some nontrivial physical
effects to occur in such structures. (The most intriguing of these
effects is high-frequency magnetism.) Classical homogenization
theories work well in the zero-cell-size limit but are difficult to
apply to large metamaterial cells. In contrast, the proposed theory is
non-asymptotic and does not involve any series expansions with respect
to the cell size. The electromagnetic field in the material is
approximated by a finite set of functions (modes) usually but not
necessarily Trefftz functions such as Bloch waves. The coarse-grained
fields and flux densities are defined via curl-conforming and
div-conforming interpolations, respectively. A linear map between
these interpolants is established and defines an extended material
tensor. In a certain canonical basis, this extended tensor has a
classical block of 36 local parameters and a novel block quantifying
nonlocal effects. From the differential-geometric perspective, this
constitutive relationship can be viewed as a realization of
Bossavit-Hiptmair's discrete Hodge operators (linear maps between
discretized 1-forms that correspond to vector fields and 2-forms that
correspond to fluxes).

Over the last decade, metamaterials have attracted unprecedented
attention due to a variety of potential applications that include
superlensing, electromagnetic cloaking, electromagnetically-induced
transparency, efficient antennas, and more. Experimental
demonstrations of these effects have been limited to proofs of
principle and at optical frequencies have so far been incomplete.
Subwavelength optical imaging has been achieved only in the
quasi-static (near-field) regime, standard for the more conventional
near-field optics; the so-called "carpet cloak" conceals surface bumps
rather than 3D objects, and so on. Moreover, applications that do not
depend critically on the effective medium description of metamaterials
appear to be more easily achievable than the ones that do. The latter
group includes, notably, superlensing and cloaking. This suggests
that, to make further progress, theoretical and mathematical issues at
the heart of metamaterial science must be unambiguously resolved. The
main problem can be stated as follows. Given the composition of a
metamaterial cell and the operating frequency, determine whether this
metamaterial can be reasonably described as a continuous medium with
some effective parameters, just like any natural optical material; if
the answer is positive, develop a rigorous methodology for such a
description. The proposed research is aimed at solving this problem in
the most difficult case when the cell size of the composite is an
appreciable fraction of the wavelength of light. The methodology, once
developed, will allow the scientific community to delineate the
possible from the impossible in the field of metamaterials.
The intellectual merit of the proposed research is in the development
of a new paradigm of non-asymptotic homogenization, of new
computational methods related to it, and in the application of the
proposed methodology to electromagnetic metamaterials, allowing one to
gain a much deeper understanding of their properties and limitations.
As a new area of research, non-asymptotic homogenization will also
have a broader technical impact in other areas of applied physics and
engineering, such as acoustics, heat transfer and possibly elasticity.